American Indian Summer Program in Mathematics at Oklahoma State University

The Oklahoma State University seeks to initiate a 4-week residential Young Scholars program in Mathematics for 30 students entering grade 12. This project, called American Indian Summer Program in Mathematics at Oklahoma State University (MOSU), is a mathematics enrichment experience for American Indian students. Academic activities include seminars on functions, patterns, and problem-solving and workshops on the use of graphing calculators, symbolic manipulation software and electronic mail. In a hands-on cooperative learning environment, participants will work together to solve mathematics problems, apply mathematics to real work situations, and learn to use graphing calculators and computers as aids for doing mathematics. The program will explore ethical issues related to the integration of traditional American Indian culture with western science and technology. Technololgy is incorporated through out the curriculum. Cultural issues and American Indian role models play a critical role. Academic year follow-up is conducted by electronic mail.